Noyce STEM Teachers Scholars

This Phase I Noyce STEM Teachers Scholars project is a collaborative venture of the College of Education, the Bagley College of Engineering, and the College of Arts and Sciences at Mississippi State University. It is providing scholarships for three cohorts of students preparing to be mathematics and science teachers for grades 7-12. Over the five year life of the project it is awarding scholarships ($10,000 per year) to 20 undergraduates pursuing a double major in chemistry, biology, physics, mathematics or engineering and science or math education, and awarding six stipends ($15,000 each) to STEM professionals pursuing a Master's of Arts in Teaching at the secondary level in order to enter the teaching profession. Recruitment strategies include summer internships in partnering schools, university summer programs, and community educational organizations. School districts participating in this project are Starkville, West Point, Oktibbeha County, and Noxubee County.